A Visualization Environment for the Single Doppler Analysis of Banded Precipitation Systems

Although Doppler weather radar systems have been used as research tools for many years, they are just moving into operational use with the multi-agency federal program called NEXRAD (Next Generation Weather Radar). Each of the 175 radars in the NEXRAD network will be collecting data at the rate of several megabytes per minute. Such large amounts of complex atmospheric data cannot be assimilated without computerized analysis to reduce the data and make it more comprehensible to the meteorologist. This project will utilize visualization techniques to enhance the meteorologist's comprehension of the BVP kinematic analysis and its relationship to the three-dimensional reflectivity structure. A system will be built by combining scientific visualization techniques and single Doppler kinematic analysis procedures for banded precipitation structures. The ultimate goal of the project is to produce a model visualization environment to serve as a powerful tool for atmospheric scientists studying the physics and dynamics of precipitation systems.